SBIR Phase I: Label-Free Biochip for Rapid Detection of Botulinum Toxins

This Small Business Innovation Research (SBIR) Phase I project will develop a highly sensitive and selective label-free biochip assay for rapid detection of botulinum toxins. The proposed method uses surface-plasmon-resonance (SPR) technology incorporating peptide cleavage at the surface of the SPR waveguide.

The commercial application of this project will be in the area of botulinum toxin detection in food, biological samples and the environment.